Dynamics and Variational Problems

This research is devoted to problems in mathematical analysis
arising from questions in physics. There are six main areas: (1)
The ultraviolet problem in quantum electrodynamics, (2) analysis of the
precise rate of approach to equilibrium on models of Kac type for kinetic
theory, (3) problems of interface motion arising from phase separation problems
in non-equilibrium statistical mechanics, (4) sharp Lieb-Thirring
inequalities, and (5) the search for patterns in minimizers of simple energy
functionals. Our proposed research into these various problems in
each case centers on a strategy in which geometric and dynamical analysis
of problems in the calculus of variations
plays a key role. We expect, as in our past research, that this strategy will
lead us to discover new results and methods in pure analysis, as well as to
improve the understanding of the physical phenomena in question.

This research is devoted to problems in mathematical analysis
arising from questions in physics. There are five main research areas
concerning a range of problems from mathematically rigorous
quantum electrodynamics to hydrodynamics. Our
proposed strategies for researching these topics in
each case centers on a geometric and dynamical analysis
of problems in the calculus of variations.
We expect, as in our past research, that this strategy will
lead us to discover useful new results and methods in pure mathematical
analysis, as well as to
improve the understanding of the physical phenomena in question.